Quantitative Simulation of Hydrothermal Chimney Growth: Integration of Theoretical Calculations and Observational Data

Metalliferous deposits prescipitate along mid-ocean ridges when hot hydrothermal fluids contact cold seawater. Three classes of models have been developed to explain this process: 1) qualitative models describing sulfide chimney formation, based on petrologic studies of hot spring deposits at several locations; 2) quantitative chemical models, based on what isknown of the fluids at 21N on the East Pacific Rise, describing fluid/rock interactions but failing to account for the changes in these interactions through time; and 3) laboratory experiments of sulfide precipaitation, which to date have not duplicated truly in situ temperatures and pressures. The PIs seek funds to continue Tivey's previous work on a transfer-reaction model of chmney growth, and to validate it against information obtained at several existing vent sites. Her model is unique in its incorporation of both the physical aspects of an active chimney (flow rates, fluid temperatures, porosity of the chimney walls, cross-sectional area and shape of the chimney, etc.) and the chemistry of the fluids and precipitates. By allowing each of these parameters to change in both time and space, the PIs contend they, more than any other modelers, will be able to characterize many features of the whole hydrothermal vent system.